Studies in Complexity Theory: A Circuit Based Approach

This research will investigate properties of complexity classes, both sequential and parallel, with a view to understand the structure of computations in these classes and the relationships among these classes. The circuit model will be used to do these studies. The Boolean circuit model is an appealing model for studying the structure of computations in complexity classes because it makes it simpler to use combinatorial and algebraic arguments. The close connections between machine models such as Turing machines and Boolean circuits facilitates the application of techniques and results from circuit complexity theory to address questions from complexity theory. The study of complexity classes defined by restricted models of computation such as monotone Boolean circuits, and the study of counting classes using the circuit framework are other developments that make the circuit model quite valuable. This research will study several issues in complexity theory with circuits as the unifying framework. Specifically, the following are some topics that will be addressed by this work: semi-unbounded fan-in circuits as a model of computation, relationships between NP and other classes such as LOGCFL that are definable using the semi-unbounded fan-in circuit model, relationships among counting classes and their implications, properties of monotone complexity classes and relationships among them, and the dual interpreted pebble game model. Many related issues will also be addressed in the course of this work. It is expected that this research work will extend our understanding of the many fundamental problems of computational complexity theory leading to new insights into the difficulties involved in resolving them.